Purchase of a 400 MHz NMR Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Case Western Reserve University will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on a) quinone-dependent copper-containing amine oxidases: mechanism and inhibition; b) asymmetric synthesis with heteroalkyl radicals; c) alpha-helical peptide nucleic acids; d) organiron complexes in organic synthesis; e) the integration of inorganic units into conjugated organic polymers to modify properties of organic light emitting diodes; and f) the synthesis of complex oligosaccharides and glycoconjugates, and the development of carbohydrate-based cancer vaccines.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry, medicinal chemistry and materials science.